Theoretical Methods for Molecular Potential Surfaces

This project in the Theoretical and Computational Chemistry program concerns the development of several improved methods for carrying out electronic structure calculations on molecules. Analytic energy gradient methods will be implemented in the Local Correlation Method to facilitate geometry determinations of the ground states of large molecules. A new method for unbiased selection of active MCSCF orbitals, based on preliminary calculation of UHF natural orbitals, will be generalized to excited states. A new perturbation theory for determination of correlation energies in open shell and multi-reference states will be implemented and tested. The analogous perturbation theory based on UHF states will also be improved by a new method of eliminating spin contamination. Taken together, these developments will greatly extend the range of chemical problems that can be addressed by accurate computational methods.